Schrodinger Operators, Integrable Systems, and Other Simple Models in Mathematical Physics

Proposal DMS-0401277
PI: Rowan Killip, UCLA

Title: Schroedinger operators, integrable systems, and other
simple models in mathematical physics

ABSTRACT

The project is devoted to the furtherance of the mathematical
understanding of certain simple physical models: (a) The long-time
asymptotics of the KdV equation will be studied for slowly decreasing
initial data via the inverse scattering/spectral method, with recent
developments in the spectral theory of such operators with merely
square-integrable potentials leading the way. Of particular interest is
the question of what behaviours can be attributed to embedded singular
spectrum in the way that solitons are related to isolated eigenvalues. (b)
The Schrodinger equation with random potentials (or Anderson model) and
its connections to unique continuation and thence to the uncertainty
principle (particularly in the form advocated by Fefferman). This also
makes links to symplectic geometry. (c) The classical Coulomb gas at all
temperatures, or equivalently, random matrices at general $\beta$. This
will be pursued through the study of orthogonal polynomials with random
recurrence coefficients as pioneered by Dumitriu and Edelman. (d) The
stability of the absolutely continuous spectrum of general Schrodinger
operators under rough long-range (say square-integrable) perturbation.

By studying simple physical models, it is possible to concentrate on
essential difficulties, without being waylaid by technicalities. The
methods and perhaps more importantly, perspectives that developed for
these simple models then inform those working closer to applications.
Three examples taken from this project are the following: (a) By studying
random matrices at general inverse temperature, beta, one hopes to better
understand the most interesting case: when beta equals two. This case is
so interesting because of its (currently mostly empirical) connection to
the zeros of the Riemann zeta function. Of course, analytic number theory
has much to offer society at the present particularly in terms of
cryptography; while this project does not address these questions
directly, one must be careful to remember the many tributaries that make a
mighty river. (b) While integrable Hamiltonian PDEs have received
intensive study in recent decades, attention has mostly been directed to
the cases of periodic or rapidly-decreasing initial data. This side-steps
the very natural question of what behaviours are attributable to the
existence of embedded singular spectrum for the Lax operator. As is well
understood, solitons are a consequence of isolated eigenvalues. A
potential implication of this work is the prediction of new quasi-particle
modes in non-linear media. (c) The better understanding of inverse
scattering found from the study of the one-dimensional Schrodinger
equation with rough and slowly decaying potentials may lead to
improvements in remote sensing technologies.